Computer Science, Engineering, and Mathematics Scholarships

Eastern Kentucky University primarily attracts students from central, eastern, and southern Kentucky. Many of these students (about 40% qualify for Pell Grant) have financial problems, which forces them to try to work full time and go to school full time. This affects the retention rate, graduation rate, and also affects the major that they pick. The number of mathematics and mathematics teaching majors has been very low now for many years. As a result of this there is a shortage of secondary teachers of mathematics in the state of Kentucky and especially in this region. The forty scholarships are helping to solve many of the problems in attracting, retaining, and graduating academically talented students in computer science and mathematical sciences. Outcomes of the project will be an increase in enrollment, graduation rate, and quality of the programs.